Mathematical Sciences: International Conference in Fourier Analysis; to be held May 13-17, 1991 in Princeton, New Jersey

Fourier analysis is a flourishing and vibrant mathematical field. It is a core subject in mathematics because its central purpose is to understand analysis on a geometric manifold and the oscillatory behavior of phenomena characterizing the manifold. The direction and emphasis of much research over the past few years has been placed on applications of ideas from Fourier analysis to other areas of analysis, including applied mathematics, differential geometry, dynamical systems, mathematical physics, partial differential equations, probability and several complex variables. New advances continue to be made in research aimed toward understanding basic problems related to maximal functions, multiplier operators and singular integrals which are at the heart of Fourier analysis. This grant will support a conference in Fourier Analysis to be held May 13 -17, 1991 at Princeton University. This conference will draw leading analysts from all over the world, many who were associated with developing the field. Many young researchers will also attend, and the conference should have a strong influence on the research developments of the next generation of mathematicians.